Fluid-Structure-Control Interaction--Theories and Experiments

9502567 Strganac This is a career award for young engineering investigators. A program of research and associated education is undertaken which examines the dynamic interaction of fluids, structures, and control systems are insufficient because these systems inherently contain structural and flow-induced nonlinearities. The nonlinearities result from unsteady flow sources, large strain-displacement conditions, and partial loss of structural or control integrity, and, as a consequence, these systems exhibit nonlinear dynamic response characteristics such as limit cycle oscillations, internal resonances, and chaotic motions. This project consists of both theoretical and experimental elements. Research objectives include the development of an analytical model for the nonlinear fluid-structure-control system, the development of adaptive control models for the fluid-structure- control system with time-varying distributed parameters, and the supporting investigation through several experiments developed to substantiate and improve the theoretical models. Two analytical models will be used as a basis for the theoretical research: a nonlinear aeroelastic system constrained to finite modes of motion, and is a structural system exposed to fluid flow and distributed damage of the control system. Experiments will be carried out to investigate the active control with distributed actuators and the adaptive control of time-varying control systems. Innovative methods to measure and identify system characteristics and stability behavior will also be explored. ***